Shipboard Scientific Support Euipment - 1998

9731813 COBURN This project will provide support for shipboard scientific support equipment for the research vessels, KNORR and OCEANUS, operated by the Woods Hole Oceanographic Institution, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Joseph L. Coburn is fully qualified to direct this project having had considerable experience in overseeing similar activities. This project will allow the institution to obtain 28 anti exposure suits, 4 fire fighting suits, 2 computers, a dewatering pump, a welding machine, electronic charting software and an INMARSAT B. for the KNORR. It will also outfit the OCEANUS with two wireless radios and call logging software. ***